Study of Ionic Interactions in Seawater

ABSTRACT

OCE-0081073

In this project, the principal investigators and his associates at the University of Miami will continue their ongoing research into the physical chemistry of iron and other dissolved substances in seawater. They will especially concentrate on determining the solubility in seawater of the very important iron species ferric hydroxide -- believed to be of great importance in the regulation of bioavailable iron. This work will also include an examination of the effects of natural organic ligands that can bind iron and this impact its chemical reactivity, solubility, and availability for utilization by marine organisms. This work with iron will be a continuation of this investigator's longstanding basic research program into ionic interactions in seawater and the implications for chemical speciation, thermodynamic processes, and the rates of chemical reactions in seawater.